Ray Splitting

Ray splitting occurs in all wave systems in which the properties of the propagation medium change on a scale smaller than a wave length. Although one of the most basic concepts of physics, ray splitting has profound consequences for the spectra of wave systems that contain ray-splitting boundaries. One of these consequences is the existence of a new non-deterministic, non-Newtonian mechanics that forms the semiclassical backbone of ray-splitting systems.
This work will investigate the effects of ray splitting in quantum mechanical systems. The key points are: (i) the analytical computation of ray-splitting corrections to the Weyl formulae of quantum ray-splitting systems in two and three dimensions, (ii) the investigation of lateral-ray orbits, (iii) the search for non-Newtonian ghost orbits, (iv) the study of time-reversal violation and (v) the investigation of experimental implementations of quantum ray-splitting systems.